Workshop Proposal: Mathematical Challenges in Cybersecurity

This workshop at the Institute for Computational and Experimental Research in Mathematics (ICERM) at Brown University brings together researchers from several disciplines, who are interested in a encompassing mathematical foundation for cyber security. The results of the workshop will be made widely available through archival publications and online at ICERM.